Developmental Pronoun Case Error

The errors young children make during the course of language acquisition give researchers strong evidence that grammar is not learned through pure imitation. One error that is a characteristic of the acquisition of English is the pronoun case error. It is typical for a 2 or 3 year old child to say something like "*Her crashed" when the child apparently means to say "She crashed". These errors are actually a form of overextension, that is, children overextend the use of a pronominal case form, in this example "her", into the syntactic environment of another, in this example, that of "she". Although psycholinguists have known of these overextensions for a relatively long time, only recently have they proposed testable hypotheses about the nature and causation of these pronoun case overextensions. This research project tests unique predictions of the Pronoun Paradigm Building Hypothesis of pronoun case overextension, and asks three research questions: (1) Are "he" and "they" overextended more often than "she"?; (2) Do the overextensions of third person pronouns exhibit a positive correlation between bias and rate of overextension?; and, (3) Is "her" overextended more than "him" and "them"? In the study, 30 children between the ages of 30 and 36 months will be audiotaped as they interact with their primary caregivers in three activities designed to encourage the use of third person pronouns: (1) playing with a Little Tikes toy set, (2) the viewing and description of a family photo-album, and (3) reading a picture book. The project will take one year to complete.